Research Equipment: Performance Analysis and Evaluation of the Combined Message Passing and Shared Memory Paradigm Using Turbonet

9500260 Manikopoulos The main objective of this project is to complete the existing Turbonet multi-processor prototype system; this will enable the researchers to investigate how to combine effectively the shared memory and message passing paradigms in a realistic multi-computer structure for selected classes of algorithms. Turbonet is a prototype system which physically implements both paradigms. It is a desirable system, in terms of its cost/performance ratio, to utilize in many computationally challenging applications of practical significance. This work is aimed to alleviate the weakness of parallel systems based solely on shared memory or message passing. An additional important issue to be aided in this work is load balancing which is a major problem in a growing number of scientific applications that give rise to programs with dynamic execution profiles.